Graduate Research Traineeships: Integrating Science, Technology, and Management in Global Civil Infrastructure Systems

GER-9553380 McNeil Carnegie Mellon University is proposing an innovative GRT program that focuses on the joint impact of science, technology and management on global Civil Infrastructure Systems. The student training will include an appreciation and understanding of the current state of the U.S. Infrastructure systems, an exposure to advances in other areas of critical importance to encourage interdisciplinary technology transfer and development, and internships abroad and in national laboratories and industries to provide the cultural breadth and to bridge theory and application. The research program for each student will emphasize a unified strategy towards deterioration science, assessment technologies, and renewal engineering. This research vision will enable the student to leapfrog the current myopic strategy of "design and new construction" to unified strategy that recognizes the importance of a systems approach, good science, new and emerging technologies and sound management practices to sustain infrastructure over its life. The proposed training program will provide the graduates with the opportunity to be future leaders in the development and sustenance of U.S. and international infrastructure. We will actively recruit underrepresented groups building on our success with working with women graduate students and utilizing our links to other institutions. We have an excellent track record with respect to retention and intend to maintain this through not only providing a unique education experience but also by maintaining strong advisor- student relationships. The innovative elements of the program are also attractive for students interested in a holistic graduate experience.